Geometric Langlands Program and Infinite-dimensional Algebraic Geometry

The principal investigators conduct research in the following areas:
global geometric Langlands correspondence, local Langlands
correspondence in the de Rham setting, conformal field theories
related to Hecke chiral algebras, families of Tate spaces and
related infinite-dimensional algebraic varieties. They explore
analogs of the local Langlands correspondence in the de Rham
setting relating representations of Kac-Moody affine algebras
with de Rham local systems for the Langlands dual group on the
formal punctured disc. They study the representation theory of
chiral Hecke algebras and related global non-rational conformal
field theories in which the correlator D-modules form Hecke
eigensheaves in order to understand the global geometric Langlands
correspondence in the de Rham setting. They construct and study the
universal family of Langalnds transforms of GL(2) local systems.
They study the algebraic geometry of infinite-dimensional algebraic
varieties similar to the space of maps from the punctured formal
disk to a smooth algebraic variety.

The subject of the research lies on the intersection of several
domains of modern mathematics and mathematical physics - the
Langlands program, geometric representation theory, infinite-
dimensional algebraic geometry, and conformal field theory. The
blend of complementary ideas and methods is very fruitful - in
particular, it leads to construction of a geometric version of
Hecke eigenforms by means of an appropriate quantum field theory.